Mathematical Sciences: Theory of Several Complex Variables

This research project concerns the value distribution of meromorphic maps from parabolic manifolds into projective space and projective varieties. Special attention will be given to moving targets, the Griffiths conjecture, questions concerning hyperbolicity and the analogy to diophantine approximations. These investigations will use curvature methods, meromorphic connections, jet metrics, Nochka weights and Steinmetz maps. Also the splitting of parabolic manifolds will be investigated by foliation methods. This research is in the general area of geometric analysis which examines the geometric properties of surfaces, or more generally, manifolds. The analytic setting of this research will be in the theory of several complex variables.